Cytoplasmic Gelation and Cell Movement in Dictyostelium

Cell movements such as phagocytosis, chemotaxis, and cytokinesis require precise control of the assembly of actin filaments into either randomly gelled networks or highly polarized bundles. Formation of these cross-linked actin structures is mediated by actin cross-linking proteins. This project focuses on the structure and function of the Dictyostelium 30,000 dalton actin bundling protein, one of seven actin cross-linking proteins present in Dictyostelium. The binding sites for actin and parameters controlling the formation of either actin gels or bundles will be investigated. The biological function of the protein will be examined through studies of its interaction with plasma membranes, intracellular localization during phagocytosis and cytokinesis, and by using a genetic approach to engineer cells lacking this protein. The structure of similar molecules in Drosophila and mouse will be examined to determine the degree of conservation of this protein during evolution of arthropods and vertebrates. This work will promote our understanding of molecular mechanisms of cell movements essential to the growth and division of eukaryotic cells.